Engineering Creativity Award: Impedance Tomographic Array for Imaging Solid Objects

Impedance tomography is the process of generating an electronic image from the impedance characteristics of a body of matter. This technique has been used successfully as a tactile sensor. This reserach project is concerned with the creation of a high resolution, two dimensional impedance imaging array capable of taking an electronic picture of a wall growing cell culture. Fundamental to this system is the two dimensional cross bow array. While some progress has been made on this array, several significant problems remain. One such problem with the two dimensional cross bar array is the determination of the localized impedance measurements at the intersection points of the two grids which comprise the array. Initial efforts have indicated variations of impedance of only 5% to 10% change leading to poor localization. Research will be conducted to improve the measuring cell impedances and to develop techniques to monitor the growth of cell colonies with impedance measurements; electronics to scan an area of the cross bar array; galvanostats needed in shielding the principal wires from extraneous currents; fabrication of the cross bar arrays.